CAREER: Transport and Stability in Biocatalytic Fuel Cells

The mission of this CAREER program is (1) the creation of
electrode structures that enhance the reactivity and stability of
enzyme bioelectrocatalysts as implemented in high power-density
biofuel cells, and (2) the integration of these and other fuel-cell
devices into a broad spectrum of education and outreach to promote
concepts of engineering product design and new energy systems in
communities, schools, and universities.
Biocatalytic fuel cell technology has the potential to
provide electrical power in conditions where conventional fuel cell
and battery technologies fail. While key characteristics of redox
enzymes, including selectivity and room temperature activity can be
exploited in, for example, physiologically implantable fuel cells,
implementation of current biofuel cells is hindered by low catalytic
activity and low stability of biocatalytic electrodes. This program
addresses both of these issues.
The model system to be studied is an oxygen-reducing
electrode comprised of porous carbon coated with a crosslinked
electrostatic adduct of laccase, an oxygen-reducing enzyme, and an
electron-conducting redox polymer hydrogel. Engineering the porous
support and its interface with the mediator/enzyme hydrogel to
maximize gel distribution will improve enzyme utilization and
increase current density. Support structures with porosities near
95% and fiber diameter of order 1 micron or less, consisting of
carbon nanotubes or electrospun carbon nanofibers, will be evaluated
for impact on catalytic activity of the enzyme-hydrogel adduct.
Gas-diffusion electrodes will be developed which take advantage of
high-rate oxygen mass transfer in the gas phase to further increase
electrode catalytic activity. The issue of stability will be
addressed by encapsulation of the biocatalysts in porous silica or
other metal oxide by means of sol-gel, aerogel, and wet gel
processing. Through-film electron mediation will be enabled using
carbon nanotubes and redox polymer mediators.
Successful introduction of fuel cells to the marketplace
depends on an available workforce of qualified scientists and
engineers, and the acceptance of fuel cells by energy consumers.
Moreover, the chemical engineering discipline as a whole is currently
undergoing a transition from process-oriented design to design of
chemical products, of which fuel cells are an excellent example.
This CAREER program addresses these needs through educational
activities emphasizing new energy systems and engineering product
design. Educational programs will include (a) A community-based,
hands-on after school program in Energy Systems for disadvantaged
high-school students; (b) An enhanced introductory Chemical
Engineering course for first-year engineering students presenting the
concepts of product design through reverse-engineering and team-based
design projects; (c) An advanced Electrochemical Energy Systems
course for graduates and senior undergraduates; (d) Immersive
research training for secondary, undergraduate, and graduate
students.
This program advances the knowledge and understanding of
biofuel cell design while promoting training and learning of chemical
product engineering in the context of energy systems.